The Computational Fluid Dynamics of Blood Flow in the Heart and Great Vessels

9509829 Cheer This project is on research to provide a foundation for the detailed understanding of the three-dimensional fluid physics of pulsatile flows with valves and moving walls in the region around the aortic valve and the downstream ascending and descending aorta. Subsidiary objectives are: (1) to produce a detailed map of shear stresses and analyze their effect on suspended particles in the hart and large vessels, and (2) to do detailed modeling of the flow pattern at the ostia (opening) of the coronary arteries which supply blood to the heart muscle. ***